The Fluid Mechanics of Volcanic Eruptions Transient Jets of Multi-phase Fluids

This research involving experimental studies of the fluid dynamic behavior of supersonic jets of multiphase fluids and applications to understanding explosive volcanic eruptions. Laboratory analogs will allow controlled study of the mechanisms of transport of mass, momentum, and energy in transient jets of multi-phase fluids. The influence of reservoir and vent geometry, particulate loading, and phase changes will be investigated. The effects of nucleation and boiling during decompression of resevoirs under hydrostatic pressure will be investigated.